A semester on Celestial mechanics and Hamiltonian systems

This award provides support to defray expenses of participants in a semester-long program on celestial mechanics at the University of Maryland during the Spring 2010 term. Much of the funding will be directed to young mathematicians (i.e., postdocs, graduate students, junior faculty) who do not have their own support.

The semester's program will cover a wide range of topics in dynamical systems, linked together by their relationship to celestial mechanics and Hamiltonian systems. An impressive number of the world's leading authorities on dynamics have agreed to take part in the program. This semester of emphasis will afford many aspiring young dynamicists an opportunity to interact on an extended basis with some of the luminaries in the field.